Lumen-Day: A New Concept for Daylighting Design in Commercial Buildings

Building energy use is approximately 38 percent of the total primary energy consumed in the United States. Opportunities exist to reduce energy consumption in existing buildings by 50 percent and in new buildings by 75 percent or more through the careful application of conservation and passive solar energy measures. This level of improvement in energy efficiency can be achieved only by taking advantage of innovative materials, products and design ccncepts and by fully integrating energy ccnsiderations into the architectural and engineering design process. The proposed project will develop a new daylighting design method based on a "Lumen-Day" concept. The essence of the Lumen-Day method is a statistical climatic data base, similar in concept to the heating and cooling degree-day method of energy analysis, generated through the interrogation and analysis of TMY/TRY weather tapes. The Lumen-Day data base would be a statistical summary of the daylight rescurce and would be used to evaluate the energy implications of daylighting use in buildings for a given interior light level and electric lighting control strategy. Using the proposed method, a building designer could readily determine the daylighting performance efficiency as well as the lighting energy use of the building design. Currently, daylighting design analysis is constrained by the need for cumbersome hourly simulations or physical model testing. The proposed Lumen-Day method provides simple design guidelines and an energy analysis procedure to efficiently determine the potential and energy savings of daylighting in commercial buildings. The Principal Investigator has excellent qualificaticns to conduct this project. There is potential commercial applications of the research: (1) As a design tool used by architects and engineers, (2) As an analysis tool used by electric utility planners, and (3) As one component of an integrated computer-aid design program. An award is recommended for Phase I.